Spanning Boundaries: A Statewide Network to Support Science Teacher Leaders to Implement Science Standards

Current priorities in school science education include building strong professional learning communities that foster ongoing professional growth among teachers, teacher leaders, and school administrators. This project responds to these priorities by developing and testing a two-year professional development model for secondary school science teacher leaders that will help them support their colleagues in implementing the Next Generation Science Standards (NGSS). The new model for professional learning combines three key elements: 1) Focusing on teacher leaders who can interpret, translate, and incorporate new approaches and resources into local contexts, 2) Engaging the expertise of informal science education specialists who are well versed in teacher professional learning and experiential approaches to learning, and 3) Establishing a statewide network of peers who can share experiences beyond individual school and district contexts. By developing a geographically-distributed network of support for science teacher leaders, the project is poised to create more equitable access to high quality professional learning opportunities for teachers as well as provide much needed support to the disproportionate number of novice teachers in schools with high populations of historically underrepresented students in science.

This early stage design and development project is guided by two research questions: 1) How do teacher leaders utilize structures, practices, and tools within an informal science institution-based network to interpret, filter, and translate available resources into professional learning supports for localized implementation of phenomena-based instruction? And 2) How do the professional learning supports developed by teacher leaders become more aligned with best practices for professional development (e.g., active learning, sustained, coherent, collaborative, and content-based) and incorporate aspects of informal learning (e.g., choice and experiential learning) throughout their participation in an ISI-based network? The project will engage two cohorts of 25 middle and high school science teacher leaders in overlapping two-year, one-week summer institutes, and a minimum of 12 online meetings during the academic years. The 30-hour summer institutes will be designed to address the multiple roles of teacher leaders as learners, classroom teachers, and teacher professional development providers. To sustain professional development across the academic year, monthly two-hour online meetings will be used to nurture the community of practice. Some sessions will focus on leadership and topics related to the NGSS, and other sessions will focus on deepening science content knowledge. The sources of data to be used in addressing the research questions include: 1) Video recordings, field notes of observations, and artifacts of professional development meetings, 2) Interviews with teacher leaders, and 3) Journal entries and artifacts from professional development sessions implemented by teacher leaders.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.